RAPID: Next phase serological testing for SARS-CoV-2 for biocultural research

This RAPID project will develop methods and infrastructure for SARS-CoV-2 antibody and immunity testing that can be operationalized to examine a wide range of social and biocultural processes as they relate to COVID-19 exposure and outcomes. Results from a large community-based sample will be used to inform estimates of the seroprevalence of infection in order to illuminate the geographic spread of the virus, identify subgroups of individuals more susceptible to infection, and investigate the development of immunity following exposure. A minimally-invasive approach to antibody testing will facilitate application in community-based settings and provide information on the predictors of viral transmission that can be used to mitigate future outbreaks. The project will also contribute to the infrastructure of science through training opportunities for graduate students and postdoctoral researchers, and includes public outreach activities on the role of antibody testing for SARS-CoV-2.

During the COVID 19 pandemic, strategic testing in community-based settings is critical for understanding the true level of infection, tracking the virus, and for preventing transmission. Serological testing for antibodies against the virus is an important tool for identifying individuals who have been exposed to SARS-CoV-2, but current clinic-based testing approaches require serum samples collected via venipuncture, which is difficult to implement when people are being asked to stay at home. This project combines the convenience of blood collection in the home with the analytic rigor that can be applied in the laboratory by using a serological test for SARS-CoV-2 IgG antibodies that requires only a single drop of blood, collected on filter paper following a simple finger stick. The investigators will deploy a web-based, “no-contact” research platform to investigate the origins of differences in COVID-19 infection rates across neighborhoods in Chicago. Following recruitment, participants navigate to a home page with their smart phone or computer where consent is obtained and a survey is administered electronically. A kit is mailed for the collection of a finger stick dried blood spot sample, which is returned to the lab and analyzed for IgG antibodies against the receptor binding domain of SARS-CoV-2. Test results will be combined with survey responses and neighborhood-based administrative data to investigate the individual-, household-, and community-level predictors of exposure. The second aim is to develop and validate a surrogate virus neutralization protocol for use with dried blood spot samples. This protocol addresses an important limitation of current antibody tests which detect the presence of binding antibodies, but cannot quantify the presence of the neutralizing antibodies that actually prevent the virus from entering host tissues upon re-infection. The protocol will then be applied to samples from the first aim to investigate the factors that predict the development of immunity to SARS-CoV-2.